The Robust Hurwitz Design Problem

Recently, considerable attention has been given to problems related to the robust control of systems whose mathematical description includes uncertain parameters. This type of uncertainty arises in a diversity of application areas such as flight control, process control, vehicle control, and network design. Several fundamental issues related to this topic will be explored. The contention here is that many problems of this type (such as stabilization, tracking, compensation against parasitics, etc.) can be reduced to more basic questions about polynomials. To this end, this research first establishes a solid connection between robust control problems and a special class of polynomial problems. The resulting polynomials turn out to have a special structure which will be heavily expoited in the proposed research. The unifying polymial framework readily accommodates changes in order and uncertainties which range over a continuum rather than a finite set. The intention is to develop specific compensator design procedures. Much of the impetus for the development of numerical methods is derived from a recent breakthrough in the theory of interval polynomials by Kharitonov.